Synthesis, Structure and Stability of Oxides

This is a renewal proposal with a two-pronged approach. The first approach involves the development of new methodologies for the synthesis of metastable oxides. The proposed methodologies involve the chemical modification of materials at low temperatures. The oxides to be synthesized are the hexagonal form of MoO3 and its modified oxides. The second approach involves the development of new phases, and the intended oxides are the oxides related to a-PbO2. The objective of this proposal is to develop an understanding of the critical chemical factors affecting the synthesis of certain types of oxides. %%%% This proposal outlined a very good quality basic solid state chemistry research program dealing with specific types of oxides. It aims to provide information about the critical factors which affect the synthesis of the oxides chemically.